Composite Colloidal Particles Produced by Carbon Dioxide Assisted Microencapsulation

Microencapsulation is the process of embedding an additive in a colloidal particle.
This technology is widely used to provide extended release of entrapped compounds such
as drugs or fragrances. However, microencapsulation may be used to produce composite
particles with controlled optical, chemical, or physical properties for a wealth of
applications. Current microencapsulation technology typically requires organic solvents
that are difficult to remove from the polymer. Residual solvent is especially undesirable for
food and drug applications where the maximum allowable concentration is very low. We
propose to study the transport of additives into colloidal polymer particles dispersed in an
emulsion of liquid or supercritical carbon dioxide and water in an effort to reduce or
eliminate the need for organic solvents. At elevated pressures, carbon dioxide swells and
plasticizes the polymer particles, facilitating mass transport. Surfactants are used to
stabilize the emulsion of CO2 and water. The surfactants also adsorb on the surface of the
particles to enhance colloidal stability. After depressurization, the polymer particles return
to their original size and shape, entrapping the additive. The adsorbed surfactant remains
on the surface and thus offers a route to controlling the surface chemistry of the particles.
Biodegradable and biocompatible polymer colloids will be impregnated with drugs,
chromophores, and luminescent nanoparticles with the aid of CO2, water, and non-toxic
surfactants. In addition, we propose to couple CO2 processing with traditional
microencapsulation techniques to lower residual solvent content and sterilize polymer
particles. The proposed research will provide a flexible, biologically and environmentally
friendly route to the production of composite particles used as devices for drug delivery,
tracers and indicators for drug discovery and genomics, and other composite colloidal
particles useful for catalysis, coatings, and optical materials. To broaden the impact of the
proposed research, a computer based instructional module on microencapsulation
technology will be developed and incorporated into the course 'Interfacial Engineering' at
the University of Rochester with the assistance of a commercial educational software
vendor. The software vendor has expressed interest in incorporating the module into their
existing software for broader distribution. Undergraduate and graduate students from
diverse backgrounds will be recruited to work on the project through existing programs at
the University of Rochester.